Strong Multi-Electron Interaction in Atomic Transition

9413338 Chang Calculations of single and multiphoton ionization, resonance energies and widths of doubly excited states, fine structure level splittings and oscillator strengths will be performed in divalent atoms using the B-spline technique. The aim is to obtain a quantitative understanding of the role of electron correlation in atomic continuum processes. ***